Collaborative Research: Recovery and analysis of preserved Poaceae viruses to examine microbial dispersal and evolution during an era of global change

Wheat, oats, rice, and other cereal grains are key pillars of human societies worldwide.
Along with other members of the grass family, these plants provide the majority of the
calories humans eat, either directly as grains or indirectly as meat and milk produced by
grazing animals. Unfortunately, these important grasses are plagued by several families
of plant viruses, including the barley and cereal yellow dwarf viruses, which damage
cereal grain production worldwide. These viruses also harm wild grasses and can
advance the spread of invasive species in nature. How have influential viruses like
these emerged and what factors have contributed to their spread and diversification? To
find clues about virus history, the project team will recover and analyze genetic
sequences of old viruses preserved within historical collections of dried plants around
the world. Phylogenetic analysis of the viruses will reveal how these viruses have
spread over time and permit estimates of dates of key events in their history. The
research will also provide information on the influence of humans on the spread of plant
viruses.
Human development of agriculture and global trade are two factors that have likely
influenced the emergence and spread of potent viruses. This research will provide
missing information about virus dynamics in the past and produce new insight into the
ways by which human activities influence the development of virus threats. The
project's broader impact will include training of educators and students from
underrepresented groups, contributions to microbial ecology outreach efforts through a
science museum, and the addition of information about virus relationships to curated
plant collections.
NATIONAL SCIENCE FOUNDATION
Proposal Abstract
Proposal:0843140 PI Name:Malmstrom, Carolyn
Printed